Transmembrane Signalling in the Hypersensitive Response of Higher Plants to Pseudomonas Syringae

The hypersensitive response of plant cells to pathogenic microbes and viruses is a rapid, local necrosis accompanied by transcriptional activation of defense genes. These phenomena are the primary bases for disease resistance in higher plants, yet the host-pathogen recognition process that initiates them is not understood. The objective of the proposed work is to investigate the biochemical events that trigger the hypersensitive response of tobacco to Pseudomonas syringae pv. syringae. Previous work has shown that initiation of hypersensitivity is marked by the activation of a plasma membrane potassium/proton exchange. Recent work by the applicants suggests that the exchange and hypersensitive responses are induced via a transmembrane signal transduction pathway that includes a calcium influx mechanism. They have also identified a GTPase that is associated with plasma membranes isolated during the hypersensitive response. The specific objectives of this research are to purify and characterize the plasma membrane GTPase and to determine whether it functions as a G-protein in the proposed signaling pathway. The possibility that phospholipase activation is required for induction of the hypersensitive response and, if so, how this relates to calcium influx and the plasma membrane GTPase will also be investigated. The experimental system is well developed and includes plasma membranes isolated by two-phase aqueous partitioning, a tobacco suspension-culture system, and Tn5- induced bacterial mutants that do not induce the potassium/proton exchange or hypersensitive responses. The results of this research will enhance our understanding of the biochemical signaling events that follow a plant's recognition of a microbial pathogen that subsequently gives rise to the plant hypersensitive response. This knowledge may facilitate the development of new mechanisms to promote disease resistance in crop plants. This work will also contribute to our fundamental understanding of signal transduction and plasma membrane biochemistry in plants.